Summer Mathematics Program for Michigan Youth

Seventy four minority high school students with high ability or high potential will be selected to spend six weeks on the campus of Michigan State University studying mathematics and its applications and learning how to communicate about mathematics to ones peers both orally and in written form. The students will be entering 8th through 12th grade students from 29 school districts in Michigan which have been identified to have large minority populations. Classes will be formed with three levels of sophistication grouping the 8th and 9th, the 10th and 11th, and the 12th graders in the three levels. Each level will be taught by a team of three instructors who represent mathematics, computer science, and written and spoken communication. The classes will be taught in an informal mode with a special emphasis on mathematical problem solving using computer technology where appropriate. Follow up conferences will be held both on the campus and in the districts during the following school year to provide continuing support for the participating students and the other students and teachers in the district.